Single Cell Microinjection and Image Analysis in Developmental Biology

This proposal is for a Biological Facilities Center for Developmental Biology. The University of California proposes to establish and/or upgrade its facilities for single. cell microinjection, image analaysis, flow cytometry, and high.pressure liquid chromatography. The single.cell micro injection facility will be used to mark individual cells in order to follow their movements and subsequent fates under various experimental conditions; to inject marker dyes to investigate gap.junctional cell communication; to inject antisense RNA or antibodies to interfere with the synthesis orfunction of specific proteins; and to inject DNA for genetic transformation experiments. Two microscopy workstations with image processing and analysis capabilities will be established: one for fluorescence microscopy and one for differential interference contrast microscopy. The fluorescence microscope will be fitted with a confocal laser scanning device that allows the direct collection of digitized fluorescence images with virtual elimination of out.of.focus noise as well as greater contrast and resolution than conventional imaging techniques. Both workstations will feed data to a Microvax facility for computerized analysis of gels and autoradiograms using a video densitometer for overall qualitative analysis and a soft laser scanning densitometer for detailed quantitative studies. The flow cytometry facility will be upgraded by adding an additional laser tube and a computerized data management system. A high.pressure liquid chromatography system will also be established.